Mathematical Sciences: Chance Processes and the Foundation of Statistics

Prior beliefs can be characterized using ideas of partial exchangeability by describing certain convex sets of proba- bilities in terms of their symmetry properties using deFinetti's theorem as a paradigm. Statistical procedures suggested by priors will also be examined using usual frequentist criteria like consistency and asymptotic normality. Tests of the assumptions for statistical models useful for policy analysis will be considered and the performance of such models under failure of these assumptions will evaluated. The foundations of statistics include concepts of prior beliefs and their characterization and their relation to good statistical procedures. How standard statistical procedures behave under nonstandard conditions and how to test the conditions to verify assumptions are other basic issues to be considered in this project.